POWRE: Ridge Meets Margin: Geochemical Effects of Subduction on the Central West Philippine Basin Spreading Center

This POWRE award provides funding to complete a geochemical study of basaltic rocks recovered from the Central Basin Fault of the West Philippine Basin. Samples were previously collected by the PI through participation in a JAMSTEC research cruise and will be analyzed for trace element abundance and Sr, Nd and Pb isotopes. The objective of the work is to investigate the geochemical influence of subduction on the chemical composition of magma erupted at a spreading ridge. The PI will collaborate on this project with Japanese scientists. This international collaboration will allow the PI to take a leadership role in international geochemical research and will lead to expanded research opportunities for her and her students.